Some Theoretical and Applied Inverse Problems

This project is dedicated to the study of uniqueness and stability in
some important inverse problems, in particular to identification of diffusion coefficients
and the speed of propagation for scalar partial differential equations and (Maxwell and
elasticity)systems. Tools will be new Carleman type estimates and
interaction between control theory and inverse problems. Also potential
theory is to be utilized in the further study of inverse gravimetry and
vorticity problems. In case of many boundary measurements the effort will be
made to resolve the fundamental uniqueness question in the inverse
conductivity problem with the data on a part of the boundary by using
localized solutions of elliptic equations recently constructed by Greenleaf
and Uhlmann. The PI will try to find cases of increased stability in inverse
problems, in particular obtaining Lipschitz conditional stability estimates for
recovery of nonlinear (space independent) elliptic and parabolic equations
from boundary measurements and quantifying increased stability in
prospecting by stationary waves with higher frequency.
Applications of theoretical results will be in identification of volatility in options markets. We expect to develop a very efficient and reliable algorithm based on the modeling of volatility. This problem is of fundamental importance for prediction of options markets and evaluation of economical stability from current market data. Another expected application is recovery of the fundamental physical relations (in chemical equations, heat conduction) from experimental data. This problem is of growing importance for contemporary engineering due to the discovery of new materials and the use of high temperatures.
The theory of inverse gravimetry combined with available models of vorticity is expected to achieve progress in evaluation of turbulence (e.g. past aircrafts) from distant measurements of pressure. This problem has important implications for increasing capability of large airports. The project will involve graduate students and stimulate their interest in mathematical problems of practical importance.